QSB: Stable Heterologous Multi-Gene Expression: Insights from Hepatitis B Virus

The long range goal of this project is to develop models of how the cellular environment influences gene expression and metabolic network response. The approach entails probing and modeling how viruses can redirect metabolic function in a host. Viruses "encode" a manageable amount of information and thus a virus-host system may prove to be a tractable system. After performing quantitative kinetic studies of the growth of duck Hepatitis B (duck) virus, stochastic and deterministic models will be developed and contrasted.